AGS-PRF: Analysis and Modeling of Persistent Gravity Waves in the Antarctic Mesosphere and Lower Thermosphere

Gravity waves in the atmosphere occur when air is pushed upward, such as by mountains or thunderstorms, and then gravity acts as a restoring force. This project will study persistent gravity waves which have been found in the upper atmosphere, in a region known as the Mesosphere and Lower Thermosphere (MLT). The work will combine observational analysis from ground-based remote sensing instruments with advanced numerical modeling to study the characteristics and potential sources of these waves. High altitude gravity waves impact navigation and communications systems and reliable operations of satellites. The project will also support workforce development through the support of an early-career researcher and public understanding of science through mentorship and outreach to high school students.

Persistent gravity waves (PGW) have been identified above Antarctica by LiDAR measurements. Unlike the variable nature of many gravity waves, the persistence of these waves suggests a fundamental, potentially overlooked, component of the MLT momentum budget. In this postdoctoral research fellowship project, the investigator will use LiDAR data to characterize PGW, including their horizontal wavelength, intrinsic frequency, vertical wavenumber, and potential energy density. Additionally, the observational data will be supplemented by numerical models to determine the propagation directions and identify the sources of PGW.